A New Statistical Model for Aggregate Political and Social Data

9311813 Achen Social scientists often use aggregate data to study the behavior of individuals but analysis of aggregates using conventional inferential methods only show relationships among averages. In many cases the behavior of interest occurs at the level of local human systems (e.g., farms, local governments) or at the level of the individual human being. The investigator will build and test a new method for analyzing aggregate data that will allow the human or individual effects to be studied. This method will combine basic social science knowledge about individual behavior and rigorous derivations of aggregate-level statistical relationships. The resultant models will generate parameters from aggregate data which can be interpreted at the individual or small human systems level. The models will be developed using historical voting data, but once developed these techniques are sufficiently general to extend to other domains where only aggregate data are available. ***